Initial Internet Access for the College of Micronesia-FSM Branch Campuses

The College of Micronesia - FSM is composed of branch campuses located on four different islands. Internet connection will permit networked facilitation of education utilizing both local education initiatives and the world-wide utilization of the Internet. The clear goal is to prepare its students for the 21st century through Internet coursework development, extension of information collection by its National Campus Learning Resource Center, and job preparation by acquiring skills in information search, retrieval and contribution. The award provides partial support of the project for two years.